High-Field NMR Studies of Molecular Structure and Dynamics

The department of Chemistry is acquiring a high-field nuclear magnetic resonance spectrometer to improve undergraduate laboratory courses by providing each chemistry student with experience in operating the spectrometer in several laboratory courses. Among the experiments being conducted with the aid of this instrument are: the synthesis of C60 (buckminsterfullerene) and the identification of this molecule by 13C and 1H NMR in general chemistry; spin dynamic studies incorporating the measurement of the 1H T1 time of water in paramagnetic solution to obtain the magnetic moment of the paramagnetic species in physical chemistry; and, determination of the rate of ring inversion in cyclohexane using a chemical exchange technique. The instrument is also being used extensively in undergraduate research projects.